Georgia Topology Conference

Abstract

Award: DMS-0308719
Principal Investigator: Gordana Matic

The Georgia Topology Conference is an annual conference that has
been organized by several generations of topologists at the
University of Georgia for over forty years. The conference has
focused on many areas of topology including hyperbolic geometry,
laminations, foliations, 4-manifolds, 3-manifold invariants,
symplectic topology and contact topology. The conference has
always featured emerging areas of research in topology.

Topology can be viewed as the study of the structure and shape of
the space we live in. As such there are deep relationships
between topology, geometry, and physics. It is this diversity of
approaches to central problems that has always energized research
in topology. We encourage and fund participation by members of
underrepresented groups. Our participants and organizers have
included many women. Typically our conferences feature a few
senior researchers and a large group of young researchers, mostly
recent Ph.D.'s and some graduate students. This format, with its
attention to emerging areas of research, helps this conference
play a significant role in both disseminating the newest research
and preparing graduate students and postdocs for a successful
research career in mathematics.